Improvement of Collection of Fossil Vertebrates, Department of Geology and Geophysics, The University of Wyoming

ABSTRACT The Collection of Fossil Vertebrates is integral to teaching and research at the University of Wyoming. The collection also is a widely used, nationally important scientific resource for study of the Mesozoic and Cenozoic fossil record of the Rockies and High Plains. Most of the collection grew through focused research, resulting in an unusually large proportion of unique samples. In 1996, the department expanded into a newly constructed, 65,500 ft2 research building that includes the vertebrate collection, associated preparatory and curatorial facilities, research laboratories, reprint library, and relevant faculty/staff offices. Associated with that move, the current project focuses on correction of curatorial problems that have accumulated since 1946. The project's goal is enhancement of the collection as a national resource for paleontological research. The following advances relevant to that goal have been made over the past two decades: (1) thorough revision of curatorial procedures, with development of an inclusive policy statement; (2) maintenance of most cataloging (the backlog was virtually total in 1976, and the collection has more than doubled in size since then), with all data linked to locality- and topographic map-files; (3) purchase of secure steel cabinetry to meet collection growth; (4) generation of an electronic curatorial system, with initiation of efficient means to on-line access; (5) construction and occupation of a fully equipped, climate controlled research building; (6) provision of a new (i. e., additional) full-time staff position as Collections Manager; (7) completion of thorough internal and external reviews that led to university-wide high priority for long term health of the collection; (8) full revision of loan records and recall of overdue loans; (9) development of a taxonomically diverse vertebrate paleontological comp arative collection (via original specimens, locally made plaster and epoxy casts, and international specimen and cast exchanges); and (10) electronic cataloging of over 30,000 reference articles and books functionally relevant to the collection. This project will allow temporary hiring of two qualified workers to help the permanent staff achieve more reliable and efficient access to specimens and associated data. The combined team will: (1) perform systematic, cross-checked verifications for completeness and accuracy of all data associated with the collection; (2) re-order, re-house, stabilize, and re-label specimens as needed; (3) eliminate a cataloging backlog of c. 8,000 specimens; (4) bring the entire database (excluding geographic coordinates from locality files) on-line for use by the national research community; and (5) develop a user guide for the collection. With exception of a computer CPU and curatorial supplies, all physical facilities are available for tasks at hand. This project will enhance: (1) use of the collection's space; (2) protection and usability of cataloged specimens? (3) completeness, reliability, and usability of the collection's databases; (4) value and usability of the collection as a federal repository; (5) use of the collection and associated databases in public education; and (6) national paleontological research.